ACS/OSA Symposium on Organic Thin Films for Photonic Applications to be held August 23-27, 1998, in Boston, Massachusetts

ABSTRACT CTS-9809016 Hilary Lackritz/ACS The American Chemical Society and the Optical Society of American (OSA) are cosponsoring a symposium entitled "Organic Thin Films for Photonic Applications" to be held at the National ASC meeting in Boston, Massachussetts, August 23-27, 1998. The principal objective in organizing this symposium is to promulgate the science and engineering of nonlinear optical polymers (NLOP) which has emerged as an important and exciting area of research. This symposium is designed to bring together engineers chemists and optical scientists to discuss polymer science and engineering capabilities and photonic device requirements so that their combined efforts will lead to new advances. Schedule topics include NLO theory, optical characterization techniques, physics of glassy polymers, thin film waveguide fabrication and promising applications which will provide the researchers with a solid basis from which they may direct their research programs. ***